Interfering Optical Interactions

9422597 Elliott Four experiments will be carried out using interference of optical interactions to control transitions in a two level atomic system. The experiments are designed to provide a test of the physical principles governing the coherent control of molecular dissociation and to determine the spectroscopic parameters of an atomic system. ***